A Framework to Combine Semantic and Structural Information for Static Analysis

ABSTRACT
Jonathan I Maletic
Kent State U
0204175
A Framework to Combine Semantic and Structural Information for Static Analysis
Jonathan I. Maletic

The research involves combining semantic and structural information of program source code for
the static analysis of software. Static analysis normally takes into consideration only structural
information of the source code. The research investigates the use of information concerning the
domain semantics to enhance existing static analysis methods. The semantic information is
derived from the comments, documentation, and identifier names associated with the source
code. A framework will be developed that allows the combination of semantic and structural
information of the source code. The framework will provide means to compute new measures
and metrics that describe the software (e.g., cohesion and coupling). Additionally, the research
will study different information retrieval methods and how they can be used to extract relevant
semantic information from the source code. An empirical assessment of the framework and the
use of semantic information for static analysis will be undertaken. Combining semantic
information with existing static analysis methods will result in new and improved analysis tools.
These tools will help software engineers better analyze, maintain, and assess the quality of large
software systems.